Oceanographic Technical Services, 2009-2011, R/V Pelican

Louisiana Universities Marine Consortium (LUMCON) proposes to support technical services on R/V Pelican, a 105’ general purpose research vessel operated by the consortium as part of the University-National Oceanographic Laboratory System research fleet. They request support only for basic services; they will provide one technician on each seagoing research project. In addition, the technical services group will maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. The budget in this proposal is for the first year of a 3-year continuing grant.